Cellular and Molecular Genetics Core Laboratory

The Cellular and Molecular Genetics Core Laboratory is used by four undergraduate Cell Biology and Genetics courses. It is equipped with electrophoretic, sequencing, and Polymerase Chain Reaction (PCR) instruments. The courses effected are designed to link benchwork experience and the formulation of fundamental questions about cellular dynamics, in order to improve both the critical thinking skills and laboratory proficiency of the students.